Descriptive Video Research.... (SGER)

This is a study of the writing styles appropriate for describing science and nature television programs, thereby making them accessible to visually impaired audiences, and to access the audience's needs and preferences for science and nature programs.